Dissertation Research: Ateline Primates as Seed Dispersers

The majority of the earth's biodiversity is found in tropical rainforest, and species diversity is particularly high in the lowland tropics. As vast areas of these habitats are destroyed worldwide, the ecological relationships between plant and animal species in these areas, such as those between mammals and their food plants, remain little-studied, although it is known that dispersal of the seeds of trees and lianas must be critical to the maintenance of plant diversity in tropical forests. The work proposed here constitutes an 18 month field study to be conducted in the lowland rainforest of the Yasuni National Park in eastern Ecuador to investigate the dispersal of seeds in fleshy fruits by primates. The study will compare the feeding ecologies of two sympatric primate species, Humboldt's woolly monkey (Lagothrix lagotricha) and the white-bellied spider monkey (Ateles belzebuth). Research protocols include a dietary and behavioral comparison of the two species, with particular emphasis on the dispersion, morphology, and chemical characteristics of fruits eaten, as well as continuous monitoring of the flowering and fruiting of trees in the area and tracking the seed dispersal and seedling recruitment patterns of individual trees. By studying primate feeding patterns in concert with the dispersal and germination of food plants, the dynamics of these mutualisms will be documented in detail, and will identify plant and animal species that appear to play the most important roles as ecological interactors. The work will contribute substantially to knowledge of the Amazonian rainforest community and the dynamics of diversity in that forest by providing detailed information on the composition of the plant community, the reproductive biology of the plant community, and the interaction of plants and primates through the role of primates as seed dispersers of key rainforest trees and lianas. The project will also extend and deepen knowledge of the interactions of primate species. Woolly and spider monkeys in the study share a recent common ancestry, similar body size, and overlapping diets, and these characteristics make them excellent study species to test hypotheses on niche separation and coexistence of rainforest animals in conjunction with the study of their roles in dispersal of seeds. Detailed study of the manner in which these two related species divide the food resources in their shared habitat will benefit our understanding of their relatively recent evolutionary divergence.